TRACE (Trace-metal Research and Collaborative Education)

This Grant Opportunities for Academic Liaison with Industry (GOALI) project is supported in the Analytical and Surface Chemistry Program and the Office of Multidisciplinary Activities. It focuses on interaction between Wake Forest University and the R. J. Reynolds Tobacco Company in both research and education. Students enrolled in the Instrumental Analysis course at Wake Forest will perform six of their experiments at the Company laboratories using equipment not available at the University. Directed by Professor Bradley T. Jones, graduate students will hold six month intern positions at the Company to learn the use of instrumentation, serve as teaching assistants for the course experiments conducted at the Company, and carry out research projects in diverse areas of Analytical Chemistry. One of these projects is to investigate trace metal determination in natural waters by extraction onto solid phase disks followed by x-ray fluorescent spectroscopy for the measurement step. Professor Bradley Jones of Wake Forest University and staff scientists of the inorganic spectroscopy laboratory of the R. J. Reynolds Tobacco Company will cooperate on experiments for the Instrumental Analysis course at Wake Forest using facilities and equipment at both the University and the Company. In addition, graduate student interns will be placed at the Company for six month terms to learn equipment operation in depth and pursue research on projects of mutual interest to the principle investigator and the Company. These involve areas such as trace metal determination in natural waters, and interferences in spectroscopic measurements occurring with biological samples.